Great Lakes Geometry Conference 2004

Abstract

Award: DMS-0333763
Principal Investigator: Liviu Nicolaescu

The Great Lakes Geometry Conference will meet on April 17-18,
2004 at the University of Notre Dame. Likely topics for talks at
the meeting include gauge theoretic methods in low-dimensional
topology, symplectic and contact topology, Gromov-Witten
invariants, mirror symmetry, and Riemannian geometry. The
conference is expected to offer eight or nine sixty-minute
lectures as well as time for interactions in an informal setting.

This is the sixth in a series of conferences that run campuses in
the Great Lakes states. Financial support is particularly aimed
at graduate students in geometry and topology throughout the
midwest, and the conference is intended to provide an informal
setting for graduate students and junior researchers from the
region to learn of recent trends and to interact with leaders in
these fields. After originating as a joint project of Michigan
State University and the University of Wisconsin, Great Lakes
conferences have been held at other campuses, including
Northwestern University and the University of Michigan.